Uridine Kinase

Uridine kinase is the rate limiting enzyme in the salvage of pyrimidine nucleotides, and in many cells or tissues it may be the only means for synthesizing the nucleotides UMP and CMP. Our work on the enzyme from mouse tumor cells shows that it is an allosterically regulated dissociating enzyme. The enzyme is also inducible by the action of growth factors or mitogens. We have developed methods for the complete purification of uridine kinase, have prepared antibody to the enzyme, have completed the early phases for cloning the cDNA for uridine kinase, and have obtained human and mouse lymphoma lines mutated at the uridine kinase locus. With the above we plan to systematically investigate structure-function properties of the enzyme by completing the cloning and sequencing of the cDNA. We will prepare truncated cDNAs expressing shorter enzyme fragments which wil be measured for loss or change of function. The mutant cell lines also express enzyme with smaller subunits than normal: these will be characterized to determine what kinetic/ functional properties have been altered. Also, different types of cells or tissues each express only one uridine kinase protein, but of varying size. We will seek to determine if there are multiple genes, of which only one is expressed in a given tissue, or if a single gene product is subject to variable processing mechanisms.